CSR-PDOS : Safe at Any Speed: Safe and Fast Distributed Applications

This project consists of techniques and tools for developing fast,
correct distributed applications. Two aspects are novel. First,
application modules developed with these techniques are statically
analyzed for potential conflicts when executed in parallel. Modules
that may conflict are serialized to avoid errors. Second,
applications are transparently monitored at run-time to show where
conservative serialization has unduly slowed the application.

The traditional approach to building concurrent systems is to write
the serial version of a module and then consider how concurrent
executions might cause errors. Each potential problem must be
synchronized appropriately before the application may be executed
safely on concurrent requests. This project analyzes code to
conservatively preclude dangerous interactions and run it safely in a
concurrent environment. The resulting safe application can be made
faster using the same techniques that developers use today to ensure
safety. For example, locks can be employed to make two segments of
code safe for concurrent execution. Although static analysis allows
developers to learn where modules may conflict, the second piece of
this project, transparent monitoring of concurrent applications, helps
developers focus their attention on areas of contention that occur in
practice.

This project's techniques will allow large, concurrent applications to
be developed without the bugs normally introduced by parallel
computation. As more of the software we use runs on central sites,
multiplexed for thousands of users, these concerns are growing. Our
techniques will be disseminated as papers at systems and languages
conferences, and as software artifacts that demonstrate their utility.